Purchase of SQUID Magnetometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Departments of Chemistry, Material Science, Physics and Mechanical Engineering at Rice University acquire a SQUID Magnetometer. This new instrumentation will greatly enhance research in the following areas: Dopyballs, Buckytubes, and Fullerene Fibers, Perpendicular Magnetic Thin Film Studies, Magnetochemical studies in Bioinorganic Chemistry, and Main Group Element/Transition Metal Compounds, Clusters and Phases. Magnetism is a property of a material arising from the force exerted on a system by a magnetic body along with an electric field. The SQUID is used to measure very small currents or voltages, which is useful to the understanding of the behavior of materials.